CISE Research Resources: Processing and Display of Volume Images and High Resolution Image Sequences

EIA 02-24433
Pearlman, William A
Woods, John W.
Rensselaer Polytechnic Institution

Title: CISE RR: Processing and Display of Volume Images and High Resolution Image Sequence

This proposal, acquiring resources for real-time processing and display of large volume imagery and high resolution image sequences, aims at supporting collaborative research projects in compressing and analyzing extremely large-scale images and high-bandwidth video. The infrastructure supports the collection and display of high-resolution imagery as well as the image processing computations. Moreover, it enables improved data transmission over gigabit network. Medicine, terahertz radiation sensing, and hyperspectral imagery, and digital cinema constitute the sources of the research. The equipment, to be placed in the Center for Image Processing Research (CIPR), supports the following collaborative research projects.
Volume and Hyperspectral Image Compression,
Terahertz Image Processing,
Multispectral Imaging in Electron Microscopy,
Transparent Migration of Complex Scientific Computing Software to Real-Time Execution,
Digital Cinema Compression,
Remote Collaboration Environment, and
Human Fatigue Monitoring and Machine Parts Tolerancing.